Support of Colorado 400 G-Ton Centrifuge Facility

Partial support is provided for the design and construction of a geotechnical centrifuge facility. The centrifuge system will be capable of performing geotechnical tests upon payloads up to 2 tons and with accelerations up to 200g (400 g-ton). A medium- to large-size centrifuge system (above 100 g-ton) provides an excellent opportunity to perform parametric studies simulating ;itin-situ;ro conditions for large geotechnical systems such as reservoirs, dams, and foundations. The size and capacity of a centrifuge system have a considerable influence on the types of geotechnical experiments that can be performed. A specially designed large capacity (above 100 g-ton) centrifuge facility dedicated to geotechnical experimentation is not currently available in the United States. The absence of such a facility limits the ability to verify and apply appropriate geotechnical models for the design and repair of large geotechnical structures.